Research in Theoretical Nuclear Physics

The proposed program of research is in the area of theoretical physics with an emphasis on
many-body problem in nuclear structure physics, fusion reactions below the Coulomb barrier,
reactions involving heavy-ions, multifragmentation and phase transitions in nuclei, solar and
supernova neutrinos, nucleosynthesis and other neutrino astrophysics. Theoretical research in
these areas is chosen to have a close coupling with the ongoing experimental programs in the
United States and abroad.
Intellectual Merit of the Proposed Work: Successful completion of the proposed projects
will lead to i) A better understanding of nuclear equation of state for applications in nuclear
reactions and nuclear astrophysics; ii) Understanding dependence of nuclear reactions on the
isospin of the reacting partners through the recently developed techniques of isoscaling; iii) A
better understanding of the neutrino masses and mixings; iv) Understanding neutrino propagation
through dense media and in strong gravitational fields; v) A better understanding of various
aspects of core-collapse supernovae; vi) A better understanding of the origin of elements, especially
those produced in rapid neutron capture; vii) A better understanding of fusion in astrophysical
environments, and viii) A better understanding of pairing and elaboration of its role in nuclear
many-body problem.
Broader Impacts Resulting from the Proposed Activity: Proposed research contributes to the
support of national priorities in nuclear science such as the proposed National Underground Science
Laboratory and Rare Ion Accelerator. The proposed research involves collaboration between
University of Wisconsin-Madison and Michigan State University, University of California at San
Diego, and University of Washington as well as international collaborations between University of
Wisconsin-Madison researchers and those from Brazil, China, France, Italy, Japan, and Turkey.
The principal investigators participate in multidisciplinary research activities that connect particle,
nuclear, condensed-matter physics and astrophysics. Both principal investigators are involved
in exposing physics to broader audiences. Balantekin plans to continue playing a major role in
developing National Underground Science Laboratory. In addition to enhancing research and education
infrastructure of the Nation in underground science, this proposed laboratory will provide
outreach to the visitors in general and regional Native American colleges in particular.